RUI: A Spherical Approach to Active Visual Processing, Robotic Navigation and Spatial Reasoning

This Research at Undergraduate Institutions grant is for study of viewer-centered spherical geometry as a useful basis for robotic perception, spatial reasoning, and navigation. Spherical octrees are proposed as the fundamental spatial representation, with appropriate coordinate transformations made as the robot moves about in its environment. The study will include hierarchical spatial inference, spatiotemporal cognitive maps, and other uses of the spherical data structures.